Advisory Panel to Plan a National Initiative to Improve Problem Solving Skills of Deaf Students

This project is building on the success of Gallaudet University's involvement in problem solving education by beginning a national initiative to improve problem solving skills of high school and college deaf students. An Advisory Panel to plan a National Initiative to Improve Problem Solving Skills of Deaf Students has been formed. The Advisory Panel includes representatives, some of whom are deaf, from various disciplines. These disciplines include deductive reasoning, inductive reasoning, non-traditional thinking, the use of symbolism in reasoning, hand-on scientific museums, invention, teaching problem solving techniques to deaf students, as well as deaf education. The panel met for two days to accomplish the following: a written statement delineating the scope of "problem solving" as it pertains to this effort; an outline of a practical plan to improve problem solving skills of deaf students nationally; identification of mechanisms for implementation; identification of personnel and organizational resources; and a comparison of the similarities and differences of the approach to what would be possible for the non- dear population to determine whether a parallel effort should be made for hearing students. It is expected that the analysis of deaf students' problem solving skills will provide insight into those aspects of general problem solving skills related to visualization -- and this should be of value to the general student population.